Bio-Based Composite Panel Systems for Residential Construction

The goal of the research is to design, fabricate, test and evaluate an innovative
panelized system for residential construction made from bio-based composite materials, which
can be fabricated simply and inexpensively. The panels will be of a sandwich type construction,
consisting of a foam core sandwiched between outer sheets or irskinsle. The panels will be
designed with or without iiwebsld between the skins. The composite materials will consist of
soybean based resins and all-natural reinforcement, such as recycled paper, chicken feathers,
and Nano clays.
The specific objectives of the proposed research are to:
(1) Design a prototype, multi-function, bio-based composite panel suitable for residential
construction
(2) Develop low-cost processes for manufacturing large sandwich panels made from bio-
based composite materials, and
(3) Test and evaluate the panels for normal, in-plane shear, axial compression and bearing
load capacity.
The research plan is organized into three primary tasks. Task 1, Design of the
prototype multi-function panel, will involve basic research to improve the performance of the
resin and composite system, and design of a generic, multi-function panel. Task 2, Alternative
low-cost fabrication processes for composite panel systems, will explore innovative methods for
fabricating large composite panels. This will include an efficient VARTM process, and also what
we term composite casting. Finally, in Task 3, Testing and analysis of the composite panel,
panels will be tested in bending, in-plane shear, axial compression and bearing, to determine
their stiffness, load capacity, ductility and failure mode. Analytical models of the panels will also
be developed to be used in design and analysis of the system.
The research will benefit society at large by providing an Advanced
Panelized System for residential construction that is made entirely from all-natural, bio-based
composite materials. The system will reduce our dependence on petroleum products and
reduce deforestation. The research brings together expertise in civil engineering, chemical
engineering, materials science and composites manufacturing: the multi-disciplinary nature of
the research will provide a unique opportunity for students and faculty to learn from each other
and explore, together this very interesting and quickly expanding of field. Results of the study
will be made available to the community through archival journals and the World Wide Web.
The PIs will use the resources of the RISE program at the University of Delaware to recruit and
encourage the participation of minority students on the project.